Targeted Infusion Project: Engineering Technology Undergraduate Laboratories Enhancement with Graphical Development Tool

[HRD 0714885] Prairie View A & M University is revamping their current Engineering Technology undergraduate lab courses with LabVIEW, aiming to improve the delivery of laboratory and corresponding lecture contents, deepening student understanding of abstract concepts through physical implementation, enhancing their comprehensive skills from theory to practice, inspiring their interests in STEM subjects, and strengthening their marketability on graduation.

Industry employment consists of almost entirely high-skill, technology-intensive jobs with wages well above the service sector. HBCUs can help to provide opportunities for students by updating the educational infrastructure to accommodate industry’s requirements in the job market. Through education, our underrepresented students have improved opportunities to achieve a well-compensated successful professional career. Industry demands for entry-level engineers are tremendous in recent years, due to the aging workforce and emerging techniques. PVAMU is working to address the problem encountered by U.S. industry in finding technically competent and highly skilled employees to fill the vacancies.